Experimental Study of Flow Instability Due to Double-Diffus-ion in Shallow Enclosures

A fundamental investigation in natural convection will be performed; specifically, this study deals with the stability of natural convective flow in fluids where both temperature and concentration gradients exist. The work will have significant implications for crystal growth in semiconductor material manufacture.